First Virtual Conference on Genomics and Bioinformatics

North Dakota State University (NDSU) is organizing what it refers to as "The First Virtual Conference on Genomics and Bioinformatics" to be held on October 15-16, 2001. NDSU will be using technology jointly funded, originally, by ANIR and EPSCoR.

The goals of the conference are to "1) transcend geographical and economical factors limiting researchers around the world, 2) increase the exchange of ideas and establish new ways of collaborating with others and 3) establish new ways to excite the K-20 community about today's multidisciplinary science."

Some speakers will participate from the NDSU campus while others will "telecommute" via the Access Grid. Individuals will be able to participate from Access Grid Node sites around the world and via real-time video-streaming technology from their computer desktops.